Temporal Changes in Permeability Induced by Seismicity

9405631 Rojstaczer This study proposes to extend work on the causes and timing of temporal changes in permeability induced by seismicity. The research is designed to obtain a more definitive understanding of the coupling that exists between fault motion and hydrology. Such information provides constraints on the time dependence of the hydrology of the shallow crust. The research also has application to the storage of high level radioactive waste at Yucca Mountain and to understanding the timing and location of major ore and hydrocarbon deposits. Finally, it may also provide prehistoric information on the rupture cycle of the San Andreas Fault. The project will examine: whether ground motion induced shear stress is capable of generating increases in permeability near the San Andreas fault; and whether the influence of seismicity on groundwater flow over geologic time can be seen in the rock record. The field aspects of the research will focus on the San Lorenzo drainage basin. This basin accounted for 35% of the excess streamflow produced by the Loma Prieta earthquake (10/17/89, M 7.0) and has already been studied extensively by the PI. Hydraulic fracture tests will be performed in granodiorite on the edge of the San Lorenzo drainage basin. The results from these tests will be used in conjunction with models of ground-motion induced shear stress to examine the constraints on ground motion induced permeability enhancement. These constraints will be used to test whether permeability enhancement can explain the spatial patterns of earthquake-induced hydrologic change in the region. Core will be obtained from the granodiorite to a depth of 300 m for petrologic analysis of the calcite cement which partially fills fractures. The influence of pre-historic faulting on subsurface hydrology will be examined by analyzing the isotopic signature of calcite fracture fills in the existing and newly obtained core. The research will be done in cooperation wit h Stephen Hickman of the U.S. Geological Survey who will provide all of the equipment and manpower associated with the hydraulic fracturing tests. Funds for Stephen Hickman's portion of the project will be provided by the US. Geological Survey.